iPAGE - Developing a Model for Broadening Participation in Informal STEM Institutions

Informal Science, Techology, Engineering, and Mathematics (STEM) institutions seek to contribute to a scientifically literate culture, which includes new and innovative learning opportunities, a diverse community of scientists and science educators, equitable treatment for all, and the development of a well-trained workforce. In order to achieve these goals, informal STEM institutions must provide learning experiences that are welcoming and productive for all learners. The iPAGE model is a comprehensive program that prepares teams within informal STEM institutions to work with their colleagues to make their institutions more inclusive learning environments in which to learn, engage in, and identify with STEM. The project incorporates learning modules, workshops, site visits, and institution-specific activities all geared to build knowledge, awareness, and capacity related to creating inclusive environments at informal STEM institutions.

The core iPAGE model is based on the US Department of Agriculture's agricultural extension service. It includes a Knowledge-to-Action approach, in which individuals adapt what they learn to local contexts by assessing barriers to knowledge use, selecting and implementing interventions, evaluating outcomes, and sustaining ongoing efforts. Through cycles of design-based iteration, the project will improve its practice, learning modules, and theory of action. Through surveys, interviews, and case studies, the research team will document learning, barriers to implementation, and culture change as teams and institutions seek to become more welcoming, diverse, and inclusive institutions.

This project is being funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments.